Computer and Network Forensics Capacity Building

This project develops a computer/network forensics curriculum that tightly integrates new courses, practical experience with partner organizations, and computer science research. The new courses educate computer science undergraduates in both academic computer science and in the practical/legal/social issues encountered in computer/network forensics. Versions of these courses will also be taught to practitioners in the URI Continuing Education Program. The project includes a Forensics Science Minor for computer science majors and minors, a track in the computer science Master's degree program, and a professional certificate program, as well as internships at partner that practice computer/network forensics. It also establishes a teaching and research lab where students and faculty address unsolved problems in computer/network forensics. The information assurance professionals graduating from this program bring much-needed breadth in technical understanding to the field. The project includes dissemination of the novel computer/network forensics curriculum model and course materials from this project to other schools so they can include forensics in their IA program.